A Travel Support Grant for the Conference of Massively Parallel Processing Using Optical Interconnections (MPPOI); San Antonio, Texas; October 23-24, 1995

TITLE: Parallel Processing Using Optical Interconnections (MPPOI); TITLE: San Antonio, Texas; October 23-24, 1995 Melhem This award supported travel of nine students and two minority and women faculty members to the Second Conference on Massively Parallel Processing Using Optical Interconnection in San Antonio, Texas, October 23-24, 1995.